CPA (Gr&Vis): Student Panel at IEEE Virtual Reality 2007 Conference

0713983
Lok, Benjamin
University of Florida

Student Panel at IEEE Virtual Reality 2007 Conference

This conference brings together researchers academia and industry focused on research topics related to the Graphics and Visualization subarea of the CPA cluster. A five-member student panel will be supported that allows students to take a more active and integral role in voicing new research directions of interest to the research community. Among the topics to be discussed on the student panel are defining the future of virtual reality research and building a career in this research area. This outreach activity helps to broaden the participation of students in research.